Dissertation Research: Communitiy Dynamics in the Development of Cahokia, Illinois

The evolution of complex social organization is a problem of central interest to archaeology. Many theories have been advanced to explain the development of pre-state chiefdoms. This project will test one of these theories: that the development of chiefdoms is an oscillating process involving the interaction of competing chiefs, inter-group warfare, and trade. The researcher will test this theory of the development of regional political entities with materials from Cahokia, the largest Mississippian period site in eastern North America. Temporal and spatial patterning of architecture and artifacts from a large residential area will be used to monitor variations in household organization and production and in elite control of the production and trade of prestige goods. This project will increase our understanding of the social and political organization of Native American groups that lived in the American Midwest region.